Theoretical and Practical Issues in Automated Deduction

Issues regarding the design of complete, yet efficient, theorem proving methods for first-order theories with equality will be studied. Two new proof techniques-proof orderings and transfinite semantic trees- based on the paradigm of simplification orderings and used to establish the completeness of a variety of theorem proving methods, including refinements of resolution, paramodulation (without the functional reflexivity axioms), and Knuth-Bendix type methods. These meta-level techniques form the basis for a rigorous treatment of rewrite-based equational reasoning and of theorem proving strategies with deletion rules such as simplification (demodulation), in general. These techniques will be further refined and elaborated to apply them to larger problem domains, and to build a programming environment for quickly prototyping theorem provers. This theorem proving environment will provide facilities for effectively describing inference rules and search plans, and observing and controlling the run-time environment of provers. It will include efficiently coded versions and primitive operations such as unification, matching and reduction, as well as different built-in abstract theorem-proving machines. Two special cases of abstract machines being studied are a reduction machine for simplification and normalization, and a linear abstract machine for stack-based strategies.